Ultraviolet Laser Fabrication of Diamond Microstructures

Diamond micromachining systems based on ultraviolet laser etching and optical sensing of surface morphology will be investigated for precision fabrication of complex structures in diamond and diamond-like carbon. The research addresses demonstration of ablation using a small waveguide excimer laser, investigation of cutting speeds, demonstration of a optical surface height probe, and investigation of techniques for graphite removal. Successful development of such a system would allow the generation of complex shapes in diamond, a material that is extremely difficult to shape because of its high hardness.